1995 Gordon Research Conference on Nuclear Chemistry

9505710 Nazarewicz Fourteen young researchers, graduates students and post- doctorals, will be supported so that it will be possible for them to attend the 1995 Gordon Research Conference on Nuclear Chemistry. This year's focus is on Nuclear Structure. ***